Research Experiences for Undergraduates in Chemistry at Wake Forest University

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. Beginning in 1992, twelve undergraduate students will spend ten weeks each summer engaged in basic research under the direction of the faculty members in the Chemistry Department. The focus of the REU project is to stimulate an increase in the number of students pursuing research-oriented careers in science, by reaching out to new populations of students, both outside and inside the University, to provide the benefits of undergraduate research experience, to inform students of the potential that chemistry holds as a career, and to aid in their realization of full scientific potential. The program includes ten weeks of research, academic credit, a seminar series, housing, travel funds and social activities. The research projects of the fourteen participating faculty span a wide range that includes organic and inorganic synthesis, kinetic and mechanistic studies, computational chemistry, analytical instrument design, environmental analytical chemistry, crystallization methods, solid-state chemistry, and electrochemistry.